2019 Theory Winter School on Strongly Correlated and Quantum Spin Liquid Physics, Weyl and Topological Physics, and New Computational Techniques.

This award will partially support the participation of approximately 20 participants in the 2019 Theory Winter School at the National High Magnetic Field Laboratory in Tallahassee Florida, which will take place from January 7th to January 11th. Preference will be given to supporting graduate students, postdoc, and junior faculty participants. The winter school will feature lectures from leading scientists, and will address current challenges in theoretical and experimental condensed matter physics, discussing new ideas and future research directions, and will enable networking and future collaborations among the participants.